XPS: FULL: DSD: Collaborative Research: Moving the Abyss: Database Management on Future 1000-core Processors

There are fundamental problems to speeding up CPUs beyond what is
possible today. Because individual transistors are not getting any
faster, manufacturers like Intel and AMD are no longer able to get
massive performance improvements just by increasing clock speeds
(e.g., going from 2GHz to 10GHz). To overcome this, future CPUs will
contain hundreds to thousands of smaller computational cores on a
single chip which will all run at the speed similar to current
processors (e.g., 2GHz). This means that each single core will only be
as powerful as current CPUs, but that the total aggregate power of all
the cores will be significantly more than what is possible today. An
important problem with the advent of these new CPUs is that the
database systems that are used in all aspects of our society are
ill-suited for this change. Such database systems are used to store
and access data for a variety of applications, including on-line
business (e.g., Google, Facebook), scientific instruments (e.g.,
astronomical telescopes), and medicine (e.g., MRI scanners). The
reason that they are not ready to handle these new "many-core CPUs" is
because most of them use ideas that were designed in the 1970s and
1980s when processors only had a single core. Thus, the purpose of
this project is to develop both software and hardware technologies
that will allow database systems to utilize the full computational
power of future CPU architectures. The results of this project will
enable organizations to deploy future applications on fewer machines
that use less energy than what is currently used today.

Computer architectures are moving towards an era dominated by
many-core machines with hundreds of cores on a single chip. This
unprecedented level of on-chip parallelism introduces a new dimension
to scalability that current database management systems (DBMSs) were
not designed for. In particular, it becomes exceedingly difficult for
the DBMS to perform concurrency control, logging, and indexing
efficiently. With hundreds of threads running in parallel, the
complexity of coordinating competing reads and writes to data
diminishes the benefits of increased core counts. Thus, in this
project the PIs propose to develop a software-hardware co-design approach
for DBMSs in the many-core era. On the software side, rather than
attempting to remove scalability bottlenecks of existing DBMS
architectures through incremental improvements, the PIs seek a bottom-up
approach where the architecture is designed to target many-core
systems from inception. On the hardware side, instead of simply adding
more cores to a single chip, the PIs will design new hardware components
that can unburden the software system from computationally critical
tasks.

For further information see project web site at:
http://db.cs.cmu.edu/projects/1000cores/